Catalytic Insertion Reactions for the Amination of C-H Bonds

Professor Justin DuBois in the Department of Chemistry at Stanford University is supported by the Organic and Macromolecular Chemistry Program for his studies on catalytic insertation reactions for the animation of C-H bonds. Mechanistic studies will be carried out with the aim of developing a model of the C-H insertation reaction. The new methodology will be applied towards the synthesis of polyfunctionalized amine-based targets, such as amino alcohols, amino acids, and diamines.

With the support of the Organic and Macromolecular Chemistry Program, Professor DuBois is developing new catalytic methods to form bonds between carbon and nitrogen atoms. This will potentially yield a process to convert low cost, broadly available organic compounds consisting of only carbon and hydrogen into more highly functionalized, value-added organic materials.